US Support for the International START Secretariat

9901551
Spilhaus
START will encourage and promote increased participation by
scientists and research institutions of developing countries in
global change research research supportive of the World Climate
Research Programme (WCRP), especially its emerging Climate
Variability study (CLIVAR); the International Geosphere-Biosphere
Programme (IGBP); and the International Human Dimensions Program
(IHDP). Specific START activities over a five-year period will
focus on: climate variability and change and their impacts,
especially on water resources, ecosystems, and biodiversity in the
lands of the Kalahari region; modelling of the Asian monsoon system
with special emphasis on Asian ecosystems; pilot studies of the
relationship between climate variability and agricultural
productivity in sub-Saharan and tropical Africa and Southeast Asia;
changing land use and climate variability and their impact on water
resources and river inputs to coastal areas in Southeast Asia;
African contributions to chemical changes in the atmosphere through
biomass burning and desertification; acid deposition and health
effects of aerosols; greenhouse gas emissions related to land use
and land cover change; and industrial transformations and their
relationship to sustainability. Capacity building will be promoted
through scientific planning and training workshops and related
activities and guest lecturer programs. Efforts to improve
linkages between research and policy-making will be strengthened
through regional fora on science and policy; workshops on the role,
planning and use of assessments; and workshops on the synthesis of
research results. Data management activities will include
development of datasets in CD format for Southeast and Temperate
East Asia and development of a data and information management
system (DIS) for global change in Southeast Asia.